Geometric and Solid Modeling with Algebraic Surfaces

The approaches in computational geometry to date have been largely theoretical and deal with discrete and combinatorial structures such as point sets, lines, polygons, polyhedra and at most general arrangement of hyperplanes. This project considers the design and implementation of efficient algorithms for an arbitrary arrangement of algebraic curves and surfaces and specifically compact solids bounded by curved algebraic surface patches. The class of algebraic surfaces, a subset of arbitrary analytic surfaces, provides enough generality to accurately model almost all complex rigid objects. Additionally, algebraic curves and surfaces have compact storage representation and form a class which is complete under all common operations required by a geometric modeling system. Finally, representing physical objects with algebraic surfaces encompasses all prior modeling approaches. The main research thrusts of this project are: (1) the design of efficient algorithms for basic operations on algebraic surfaces (these manipulations include intersection, parameterization, Ck-interpolation, and approximation), and (2) the design of efficient algorithms for basic manipulations on solids bounded by algebraic surface patches (these manipulations include: boolean set operations, convex hull, decomposition, convolution, offset, blending, and smoothing operations).